Mathematical Sciences: Optical Solitons and Semiclassical Solutions of the Quantum Nonlinear Schrodinger Equation

9508711 Alber The University-Industry Cooperative Research Programs in the Mathematical Sciences are programs designed to establish a mechanism for exchange of mathematical scientists between academia and industry at different stages of their careers. These programs will strengthen the links between industry and academia and identify and encourage new avenues of research in the mathematical sciences. The University-Industry Postdoctoral Research Fellowships provide two years of support for recent recipients of doctoral degrees in the mathematical sciences. These awards are a means of contributing to the future vitality of the scientific effort of the nation. The postdoctoral fellow will work closely with scientific advisors from both academia and industry. Gregory G. Luther received his doctoral degree from the University of Rochester and will work under the direction of Mark S. Alber at Notre Dame, Jerrold E. Marsden at Berkeley, and Jonathan Robbins at Hewlett-Packard. Collaborators at Los Alamos National Laboratory will also participate. The research will be on soliton-based long-haul optical communications systems. Both advanced analytical and numerical techniques will be used to study details of soliton and soliton-like solutions of the nonlinear wave equations that model optical communications and information processing systems.